Development of Interactive Material for the Constructivist Teaching of Mathematical Proof to Future Teachers

This project is developing two sets of interactive examples and tools to assist in the teaching and learning of mathematical proof techniques. While the primary target audience is pre-service teachers at the secondary level and elementary teachers with a concentration in mathematics, the tools are also being piloted in an upper division abstract algebra course. Both the CounterExamples package and the ProofReader package are being designed to facilitate extensibility in that other faculty can add problems to both. The Mathematics Digital Library (www.mathdl.org) is serving as a primary repository. In addition, discussions with a publisher are underway for the examples and tools to complement an existing discrete mathematics textbook.